NSF GK-12 Principal Investigators' Annual Meeting

The Directorate for Education and Human Resources Programs (EHR) of the American Association for the Advancement of Science (AAAS) proposes to organize and facilitate the National Science Foundation's (NSF) Graduate Teaching Fellows in K-12 Education (GK-12) Principal Investigators' Annual Meeting to be held early in November 2002. In doing so, AAAS will work cooperatively with NSF's Division of Graduate Education, which houses GK-12, to organize a two-day meeting for principal investigators and other members of the GK-12 funded programs, including K-12 teachers and graduate teaching fellows. AAAS/EHR will arrange pre-conference activities, develop the agenda in cooperation with NSF staff, host the meeting, oversee all meeting logistics, interpret and summarize findings from discussions and presentations, and prepare electronic and print documents.